Statistical and Applied Mathematical Sciences Institute

SAMSI is a national institute that will deeply impact the future
of the statistical and mathematical sciences and, through them,
science in general, by catalyzing creation of the theory and
methodology necessary to confront the central data- and
model-driven scientific challenges of our time. SAMSI will focus
on new syntheses of the statistical sciences, applied mathematics
and disciplinary science. To illustrate the vision, consider an
activity central to modern science and technology, and with which
SAMSI will be heavily engaged: numerical modeling of complex
physical processes. Developing numerical models and evaluating
their fidelity to reality requires merging knowledge from
multiple disciplines. Applied mathematics builds on disciplinary
understanding to construct a fine-detail numerical representation
of the deterministic aspects of a process; probability provides
concepts and insight to characterize stochastic elements of the
process; and statistics provides the mechanisms to relate these
constructs to observational data on the real-world process. But,
despite a multiplicity of context-specific advances, there is
currently no general framework for combining these disciplines,
much less a formal system for simultaneously applying them. The
SAMSI efforts in this direction will focus on filling this gap,
by bringing together statisticians, mathematicians and modelers
from across the country (and beyond) to establish frameworks for
model development and validation, at a high level that spans
multiple application contexts.

To carry out this synthesis of the statistical sciences, applied
mathematical sciences and disciplinary sciences, SAMSI engages
established researchers - from academia, industry, national
laboratories and government - as well as young researchers
(postdoctoral fellows and graduate students) at the formative
stages of their careers. Each research program lasts from 6
months to one year, and involves a host of activities ranging
from research by intensive interdisciplinary working groups to
broad, energizing workshops. Outreach to undergraduate students,
high-school teachers and faculty from teaching institutions
extends SAMSI's impact on the essential development of the
national human resource base for science. To enable activities of
the breadth and depth necessary for the success of SAMSI, the
institute is a partnership between the National Science
Foundation and the consortium of Duke University, North Carolina
State University, the University of North Carolina at Chapel Hill
and the National Institute of Statistical Sciences. These
partners provide a uniquely strong base for SAMSI's national
scope. Scientific input to SAMSI comes, in part, from a National
Advisory Council composed of eminent statistical and mathematical
scientists. Most important, SAMSI will engage the entire
nationwide statistical and mathematical sciences communities, by
means of widely publicized opportunities to bring problems to
SAMSI, or direct SAMSI's attention to them.